Managing Energy as a First Class Operating System Resource

Managing the energy consumption of computers requires cooperation
between energy aware applications and operating systems. This
research seeks to fully explore the energy management space
surrounding the interaction of applications and the operating system.
Applications should adjust their energy consumption when appropriate,
but must be provided accurate information on their individual energy
consumption. The operating system must implement the mechanisms and
policies to determine energy consumption and allocate it fairly as a
global system resource.

This research will first re-examine operating system structure with an
emphasis on managing energy as a first class resource. Energy
management cuts across all traditional system resources, with the CPU,
disk, network, and memory all exhibiting unique energy consumption
characteristics. Next, the work will explore policies for allocating
energy to competing tasks. The goal is to maintain fairness while
observing user-specified priorities and soft real-time deadlines.

The end product of this research will be a comprehensive framework for
globally managing energy in a diverse set of scenarios, ranging from a
single mobile computer, to wireless sensor networks that may have
aggregate goals across a large number of sensors, to hosting centers
that wish to provide maximum performance with minimum energy
consumption.